A New Processing Technique for Forming Flexible A-15 Super- conducting Tapes with Extremely High Critical Current Densities & Magnetic Fields

This project deals with a new processing technique for forming flexible A-15 superconducting tapes with high critical current densities and magnetic fields. The processing technique involves melt-spinning of superconducting alloys to form amorphous ribbons followed by annealing into the A-15 crystal structure with very fine uniform grains.//